Student Travel Support for IEEE ICNP 2011

This project provides student travel support for the IEEE International Conference on Network Protocols (ICNP)held in Vancouver, Canada on Oct 17-19, 2011. The project allows a selected set of US students interested in network protocols to travel to this conference and benefit from the talks and other events. ICNP is a premier conference in this area and exposure to students of cutting edge research is essential.